3H and 3He Measurements Along WOCE Pacific Lines 14N and 17N

In this project, the Principal Investigator will collect water samples for analysis of Tritium and Helium content along hydrographic lines designated by the World Ocean Circulation Experiment (WOCE) as P-17N and P-14N in the North Pacific. The measured distribution of these tracers would be combined with hydrographic and other tracer information to study the general circulation of the North Pacific.